Simulating Molecular Dynamics Initiated by Strong Laser Fields

Professor Benjamin G. Levine of Stony Brook University is supported to develop theoretical methods to understand the quantum mechanical motions of molecules on ultrafast timescales. Ultrafast laser pulses can be used to control and observe motions of molecules on the shortest length and timescales. Such control is essential to future quantum technologies, which will enable unprecedented advances in computation, communication, information security, and sensing. But the interpretation of the data that is generated by ultrafast laser experiments remains a major challenge, and particularly challenging is the interpretation of experiments based on very intense laser pulses. In the proposed work, the Levine group will address the critical need to develop new simulation methods that can accurately and efficiently simulate molecular motions following excitation by strong laser pulses and connect those motions directly to experimental observations.

The central philosophy of this proposed research program is that the ab initio molecular dynamics (AIMD) tools that are used to study ultrafast dynamics are inherently limited, both in accuracy and in sampling. Thus, a complementary set of tools that make the most efficient use of realistic simulation datasets in the context of real experimental data will be developed. First, the Levine group will develop the theoretical tools to directly simulate the ultrafast signals of strong pump-strong probe experiments that generate and probe ultrafast quantum coherences. The Ehrenfest with collapse to a block (TAB) approach is uniquely suited to simulate coupled electron-nuclear dynamics in systems with long-lived electronic coherences. TAB will be advanced by creating post-processing methods for simulating strong-field probes of coherence and for incorporating quantum recoherence into those signals. Second, novel tools for modeling fragmentation following strong-field ionization will be developed. Fragmentation is an intriguing chemical reaction in its own right, a central process in mass spectrometry, and in ultrafast experiments, an informative probe of quantum dynamics in molecules. Yet in most cases, brute force ab initio simulation remains out of reach due to the large number of sometimes-rare reaction pathways that must be sampled. The Levine group will develop a novel approach to applying the maximum caliber (MaxCal) principle from statistical mechanics to build accurate mechanistic models of fragmentation reactions, optimally using information from both ab initio molecular dynamics (AIMD) and experimental datasets. The outcome of this project will be a set of simulation methods that can be broadly applied to understand the dynamics of quantum coherences in excited molecules and fragmentation reactions. These tools will be developed in the context of existing collaborations with experimentalists, both allowing the interpretation of cutting-edge strong field experiments and ensuring that the usefulness of the information the proposed methods generate is maximized.